Arkansas Advanced Development Program

The Experimental Program to Stimulate Competitive Research (EPSCoR) in the state of Arkansas will enhance the research competitiveness of approximately 35 scientists in three research clusters: (1) Arkansas Neurobiology Research Center; (2) Center for Cellular and Molecular Studies on Biological Aging; and (3) Center for Protein Dynamics. Arkansas' effort is directed toward bringing three groups of scientists to a nationally-competitive level by funding equipment, graduate students, common facilities, and post- doctoral scientists, and by recruiting new faculty members. Outreach components of each group will draw undergraduate students and faculty from other institutions in the state to conduct research under as the direction of the nationally- competitive group leaders. In addition to the clusters' outreach programs, the statewide EPSCoR Committee will administer the Visiting Scientists Program, providing funding for continued research at primarily undergraduate institutions. A Public Awareness Program is funding the production of six half-hour documentaries featuring Arkansas scientists. These documentaries, produced by the Arkansas Educational Television Network, will be shown on the public television stations and include corresponding educational materials so that the programs may be used in the public schools. During the three year period of the award, state and institutions will contribute $3 million in support of EPSCoR'S objectives.